The Design, Definition, and Implementation of Programming Languages

Research will be carried out on the design, definition, and implementation of programming languages, with emphasis on type systems. Specific topics include the coherence of ontological definitions, the meaning of parametricity for polymorphic functions, and the unification of polymorphic and intersection types.